CAREER: Reduced-scale Additively Manufactured Models for Quantifying the Behavior of Large Structural Steel Castings

This Faculty Early Career Development (CAREER) grant will support research to extend the applicability of reduced-scale physical models to quantify the failure behavior of full-scale structural steel castings under seismic loads. The modular construction of steel structures using castings reduces the structural weight, construction time, and erection costs. Steel castings also offer exceptional architectural freedom and high seismic and blast resistance. However, they are often large and geometrically complex, hence traditional mechanical testing is not commonly feasible, which prevents structural engineers from exploring their full potential. The outcome of this project will enable engineers to perform multiple tests on scaled-models using testing laboratories with limited capabilities instead of fewer tests on full-scale prototypes in sprawling facilities with expensive equipment, providing a better understanding of system-level behavior at a relatively meager cost. The research will also facilitate the development of design guidelines for structural steel castings, increase their market share, create new jobs in the US manufacturing sector, and reduce the carbon footprint. As part of the grant, an extensive set of education and outreach activities will also be pursed to increase the participation of Native Americans in STEM disciplines and improve their retention and graduation rates, including undergraduate internships, multi-day workshops, and competitions and debates.

Satisfying the geometrical and material strength similitude requirements and deriving scaling relationships are the two challenges that accurate reduced-scale physical models are required to overcome. This research aims to quantify the fundamental scaling relationships between strength, ultra-low cycle fatigue fracture (ULCF) initiation strain, and life of additively manufactured, reduced-scale physical models and full-scale steel castings subject to seismic loads. The approach is centered on the additive manufacturing of reduced-scale models with the help of data-driven process and build parameters and post-heat treatments to satisfy geometric and material strength similitudes. It also comprises development of a deep neural network framework to be trained with large quantities of fracture data, numerically generated from realistic microstructures, to learn the damage scaling relationship that will relate the fatigue fracture behavior of additive manufactured models to full-scale steel castings. The experimental validation plan includes characterization of the microscopic fatigue damage using x-ray tomography and structural testing of two full-scale components. Overall, the similitude theory based on mechanics, additively manufactured physical models, and machine-learned scaling relationships will advance the use of reduced-scale physical modeling beyond large deformations into the realm of fatigue fracture.

This project is jointly funded by the Division of Civil, Mechanical and Manufacturing Innovation (CMMI) and the Established Program to Stimulate Competitive Research (EPSCoR).